Integrated Undergraduate Laboratories for Biochemistry and Molecular Biology

A key challenge in educating today's undergraduate students is to bring together understanding of biochemistry, immunochemistry, microbiology and molecular biology in a functional manner. The aim of this project is to develop a year-long laboratory course with 3 integrated modules for undergraduate majors in the Department of Biological Sciences' Bachelor of Science degree programs in Biochemistry and Microbiology which are now being expanded to include Molecular Biology. These laboratory modules are designed to provide up- to-date training for the students in fundamental methods used in biochemistry, immunochemistry, microbiology an molecular biology. This laboratory course sequence will complement the year-long lecture course in Biochemistry and Molecular Biology, which is a set of 3 one-term modules required for students studying Biochemistry and Microbiology. The current situation is that only a single one-term laboratory course is offered and it covers only the basic methods used in biochemistry and a brief introduction to nucleic acids. The proposed project is a logical extension of our curriculum, which would bring together contemporary methodology using modern instrumentation to enhance the learning environment for these students. To achieve this program development, we will integrate our offerings in laboratory methods to link the student's understanding of biochemistry, immunochemistry and microbiology to molecular biology. The major instruments to be purchased include: UV-Vis spectrophotometers, PhastSystem gel electrophoresis system, FPLC chromatography system (including an IBM-type personal computer), preparative centrifuge, bench-top fermenter, DNA sequencing gel apparatus and DNA sequence analysis software. The significance of this project lies in the unique integration around a central theme of biochemical and immunochemical methods for analysis of enzymes and recombinant gene products, the regulation of gene expression in bacteria, and the cloning and characterization of bacterial genes.